CDS&E: AI-Enabled Analysis of Grain-Boundary-Mediated Hydrogen Diffusion Kinetics within Polycrystals

NONTECHNICAL SUMMARY
Hydrogen (H) is the lightest and most abundant element in the universe, and it plays an important role in many engineering applications. It is used in fuel cells and in nuclear fusion systems. H can also be generated inside nuclear fission systems through corrosion reactions and may be unintentionally introduced into metals during manufacturing processes such as welding, heat treatment, electroplating, and pickling. Despite its technological importance, H can create serious safety and reliability challenges. Because H atoms are extremely small, they can enter many metals, move through their internal structure, and interact with defects in the regular spatially periodic arrangement of atoms. This can lead to H embrittlement, a degradation process in which metals may fracture unexpectedly. Such failures are especially concerning for nuclear safety, H storage, H transport, energy conversion, and structural components exposed to H-containing environments.

Most engineering metals are made of many small crystals, called grains. The interfaces between these grains, known as grain boundaries (GBs), strongly influence how H moves through a material. Some GBs may trap H, some may provide fast transport pathways, and some may change structure as H accumulates. This creates a two-way interaction: GBs control H diffusion, while H can alter GB structure and stability. This project combines artificial intelligence (AI) with advanced atomistic simulations to understand how H moves through GBs and how this motion changes the material itself. The research team develops computational tools to identify H trapping sites, predict H migration, and simulate the coupled evolution of H diffusion and GB structure. The resulting knowledge will help guide the design of safer and more reliable materials for nuclear power systems and other H-related technologies. The research team will also release codes, scripts, and datasets developed by the project through open-access repositories so that other researchers can use and extend the developed tools.

TECHNICAL SUMMARY
The technical objective of this project is to develop an AI-enabled computational framework to quantify the coupled interactions between H diffusion kinetics and grain boundary (GB) deformation in polycrystalline metals. The central scientific challenge is that H transport along GBs is governed by atomistic hopping events between interstitial sites, but the relevant diffusion processes occur over time scales that are difficult to access using conventional molecular dynamics calculations. As a result, the mechanisms connecting local GB structure, H migration barriers, diffusion pathways, and GB evolution remain insufficiently understood.

To address this challenge, the research team integrates Diffusive Molecular Dynamics (DMD), Voronoi tessellation, Nudged Elastic Band (NEB) calculations, and machine-learning (ML) surrogate models. DMD provides a nonequilibrium thermodynamic framework for long-time-scale, atomistically resolved simulations of coupled H diffusion and lattice deformation. Voronoi tessellation is used to automatically identify candidate H trapping and hopping sites in both ordered and disordered GB environments. NEB calculations then compute site-specific migration energy barriers between these sites as functions of local atomic structure, H concentration, temperature, and lattice deformation. Because direct energy-barrier calculations for every hopping event would be computationally expensive, ML models are trained on the DMD-NEB datasets to predict migration barriers during large-scale simulations. Local atomic-environment descriptors, together with regression and neural-network models, are evaluated for this purpose. The resulting framework will be applied to bicrystals and polycrystals containing both special GBs and random GBs. These simulations determine how different interfaces regulate H diffusion pathways, local diffusivity, hydride formation, stress evolution, and GB structural change.